RII FEC: Advancing Climate Neutrality in Farming Communities through Upcycling Natural Fiber Reinforced Fireproof Vitrimer Composites

This multidisciplinary project aims to develop sustainable materials and manufacturing methods that address the impacts of environmental variability. The project focuses on two main goals. First, the project will create innovative farming methods to improve soil and plant conditions in areas affected by extreme weather events to grow natural fibers. Second, researchers will use these natural fibers to replace synthetic fibers like carbon or glass in making high-performance, fireproof, and recyclable composite materials. These new composites will provide a solution for various applications that require lightweight materials. Additionally, the project emphasizes workforce development by training students and professionals, ranging from pre-college students to junior faculty.. This initiative aligns with NSF’s mission to promote the progress of science, advance national health, prosperity, and welfare, and secure national defense by contributing to the development of innovative and sustainable solutions.

Technically, the project aims to address several challenges in converting natural fibers into high-performance composites. The research focuses on enhancing natural fiber properties through advanced plant and farming management techniques, designing fireproof shape memory vitrimers (FSMVs) using machine learning, and developing novel fiber alignment processes. The challenges include variability in fiber properties, poor fiber-matrix compatibility, high moisture absorption, and susceptibility to flame. By combining natural fibers with FSMVs, the project aims to protect the fibers from fire hazards. The research will generate fundamental knowledge on the processing and optimization of natural fibers, ensuring good suspension in dispersion fluids and high packing efficiency in aligned composites. The project will also explore the production of complex parts using in-plane extensible short fiber composites, optimizing processes to meet performance and cost requirements for mass-market applications. The collaboration with BrightMa Farms will facilitate the training of farmers, transitioning research findings into practical applications. Ultimately, the project aims to demonstrate the feasibility and scalability of these sustainable composites that can be used in various applications, such as consumer goods and automotive, replacing traditional metallic solutions and advancing sustainable manufacturing practices.